Lower Bounds for Time-space Tradeoffs, Data Structures, and Proof Complexity

This research addresses several problems in three areas of computational
complexity. The overall objective in each case is to understand the limits
of the capabilities of computers and the algorithms that run on them.
The first area of research concerns tradeoffs between the processing time and
storage requirements of computations:
When can one solve problems using algorithms that are both fast and
use small amounts of storage and when is one limited to trading off these
two resources, reducing storage requirements only at the cost of
additional running time?
The second area of research concerns the increased efficiencies in data
structures that are possible by taking advantage of the wide range of
instructions in modern processors that operate on entire computer words at
once.
The third area of research involves the analysis of algorithms to solve
NP-hard search problems.
When many such algorithms search but do not find a solution to a problem,
they implicitly provide proofs that no such solution exists.
In this portion of the research, the investigators analyze the form of these
implicit proofs to show the limits of the efficiencies of these search
algorithms.

More specifically, the research in time-space tradeoffs builds on the
investigators' previous work on time-space tradeoff lower bounds and is aimed
at extending these results to other natural problems such as graph
connectivity and improving the complexity limits shown by current lower bound
techniques.
The research in data structures works in the model of random-access machines
with arbitrary unit-cost operations on word-size quantities.
The goal of this data structure research is to understand the limits of the
algorithmic improvements possible in this model, particularly for
nearest-neighbor queries, priority queues, sorting, and garbage collection.
The research on the complexity of NP-search algorithms focuses on
the proof complexity of co-NP properties of random structures.
The goal is to show that for randomly-chosen inputs, natural proof systems
such as resolution almost always require exponential-size proofs of membership
in the co-NP sets corresponding to the duals of natural NP problems.
A consequence of this would be proofs that large classes of algorithms for
solving the NP problems require exponential time on large numbers of inputs.